SGER: Development of High Resolution Resonance-based Anemometer for High Temperature Liquid Metal Flows

This Small Grant for Exploratory Research (SGER) is to develop a new liquid metal flow anemometry method suitable for use at temperatures above the operating range of existing non-consumable probes (i.e. at temperatures in excess of 770 degrees Celsius). It is anticipated that the device will provide spatial and temporal resolution on the order of 2 mm and 1 ms, respectively, thus significantly improving upon present measurement capabilities. The device, fabricated from temperature resistant ceramics, will incorporate thin pressure-sensitive ceramic diaphragms and dual-cantilever. The development of a new liquid metal flow anemometry method will provide the basis for a number of new technical and scientific applications, most notably high-temperature process control and monitoring, and high resolution velocity measurements in fundamental liquid metal flow studies.